Development of a Computing Roadshow Cohort

Computer Science (31)

This project is conducting a two-day summer workshop for individuals from colleges and universities who participate in K-12 computer science outreach activities. The workshop focuses on coordinating these outreach activities to achieve improvements in their scope and effectiveness and on facilitating communication and cooperation among the individuals engaged in these activities.